Analysis and Interpretation of Turbulence Data in Stably Stratified Flows

Analysis will be completed on previously collected data to compare the evolution of turbulence in the wake of a sphere with that generated by a mesh with uniform grid size. Completion of this project will lead to better understanding of turbulent mixing in stratified flows and internally consistent criteria to describe its evolution.